Automated Methods for Verification of Concurrent Software Systems

CCR 9988884
Title: Automated Methods in the Analysis and Verification of Concurrent
Systems
PI: A. Prasad Sistla

Abstract:
The project investigates various methods, based on temporal
logic model-checking, for automated
analysis of concurrent and distributed systems including
security verification of Internet based applications such
as e-commerce.
Hybrid techniques, employing symmetry and partial order based
methods, will be investigated for containing
the state explosion and for checking both safety and liveness properties.
The project also considers work on verification of systems
composed of arbitrary number of processes.
Verification of such systems
with different network topologies will be explored.
As part of this work, induction based techniques as well as
algorithmic techniques will be developed. The security verification will
consider different security properties, intruder and protocol models.
The project emphasizes both basic research as well as experimental
work in the form of implementation
and application to real-world problems.